Vertebrate Paleontology of the Triassic to Jurassic Sedimentary Sequence in the Beardmore Glacier Area, Antarctica

This award, provided by the Antarctic Geology and Geophysics Program of the Office of Polar Programs, supports a project to investigate Triassic and Jurassic dinosaurs and other vertebrates from the central Transantarctic Mountains of Antarctica. A field program to search for Upper Triassic to Jurassic age fossil vertebrates in the Beardmore Glacier region will be carried out in the 2003-04 austral summer. Initially, field efforts will concentrate on the Hanson Formation that has produced the only Jurassic dinosaur fauna from Antarctica. Further excavation of the Hanson dinosaur locality on Mt. Kirkpatrick will occur, followed by an extensive search of other exposures of the Hanson, Falla and Upper Fremouw Formations in the Beardmore area. A field party of six persons will allow two smaller groups to work independently at different sites. This group will operate for 3-4 weeks out of a small helicopter camp located in the Beardmore area. In addition to collecting new specimens an interpretation of the depositional settings for each of the vertebrate sites will be made. The second and third years of this project will be dedicated to preparation and study of the vertebrates. Antarctic vertebrates provide a unique opportunity to study the evolutionary and biogeographic significance of high latitude Mesozoic faunas and this project should result in significant advances in knowledge in this field.